Rare Radiative Decays of the Phi Meson

A detector that will be constructed for an experiment at CEBAF to measure rare radiative decays of the Phi Meson. The experiment is a collaborative effort involving nuclear and high-energy physicists from several universities. It has received the highest rating from the CEBAF Program Advisory Committee. The total cost of the detector will be shared with the Department of Energy and with several of the universities involved in the project; this funding is already in place. Partial support will be provided by the NSF Office of Multidisciplinary Activities (OMA) as part of an enabling initiative for instrumentation development. The goal of the experiment is to measure rare radiative decays of the phi meson in order to study the quark structure of daughter states as well as to probe possible symmetry violations. Sensitivity to branching ratios at one part in ten thousand will permit significantly improved charge conjugation tests, as well as providing important information about the structure of poorly understood scalar meson states. The detector will consist of an electromagnetic calorimeter which will detect all-photon decay modes of the phi meson. The requested funds will be used to construct a charged-particle veto wall to ensure a neutral final state, a dedicated data acquisition system, and various ancillary devices such as a suitable target and beam pipe and calibration system for the calorimeter. Graduate education is a central but implicit element in this project.